Scientific Discovery for Students from Underrepresented Groups

St. Cloud State University will initiate a five-week, multidisciplinary, residential Young Scholars project focusing on water quality for 24 students entering grades 9,10. Students will be exposed to these several disciplines through an on-campus program and follow-up activities that use a "Science- Technology-Society" (STS) approach and which focus on STS issues of immediate relevance to the students and their respective communities. The program will also include field trips, career awareness workshops, literature to parents on preparation for careers in science and engineering, seminars on the contributions of American Indian, Latin American, African, and Asian societies and minority and female scientists to science and technology. Examination of the philosophical and ethical aspects of society- science interface is an inherent and integral part of the STS model, and will be a part of the students' projects.